Ion Interactions in Cloned Potassium Channels

The electrical activity of many organs is shaped by potassium selective ion
channel proteins. Defects in potassium channels produce several types of
electrophysiological disturbances including cardiac arrhythmias and
epilepsy. These channels are the targets of many therapeutic drugs
including the Class III anti-arrhythmic compounds. While many types of
potassium channels have been cloned, many of their most basic properties,
including ion discrimination and permeation, remain poorly understood. This
project is designed to probe the mechanism of the interaction between
tetraethylammonium ions (related to some Class III drugs) in the pore in
these channels. This will be accomplished through a combination of
molecular biological techniques with electrophysiological recordings and
measurements of radio-labeled unidirectional ion fluxes. An additional
component of this work will be the development of new forms of ion
permeation models. These models will be developed as quantitative
descriptions of the ion permeation mechanism but, more importantly, will be
used to design new experiments and test competing mechanisms. A Web site
will be established in order to facilitate wide distribution of these models
for teaching and scientific uses.

The results from this work will aid the understanding of selectivity and
permeation in ion channel proteins. Since many therapeutic drugs interact
with the pore in these channels and with ions in the pore, understanding the
mechanisms of permeation and block may lead to the development of better
drug therapies. The modeling tools that will be developed and broadly
disseminated will help educate students and other scientists about these
fundamental properties of ion channel proteins.